Discrete Problems

The project addresses problems covering a rather broad
spectrum of discrete mathematics (DM), some drawn from related
areas such as statistical mechanics (SM), probability, and
theoretical computer science (TCS). A common thread in many
of these problems is:one is given a probability distribution
on some large discrete space (e.g. independent sets in, or
proper colorings of, a graph), and wants to know whether
behavior in one part of the system can significantly affect
behavior in other, distant parts. The loose term
``long range effects" (LRE's) is used for such interactions.
Both strong and weak LRE's are of interest:
For SM what's wanted is, more often than not,
strong LRE's, usually under the name ``phase transition" (PT).
In very recent work, the investigator and his student David
Galvin used mainly combinatorial ideas to settle one
much-studied question in this area (concerning PT's in the
``hard-core lattice gas model"), and a particular hope at
present is that ideas from this work, and, more generally,
the investigator's combinatorial perspective, will lead to
progress on various more or less related questions.
From the perspectives of DM and TCS, on the other hand,
weak LRE's are often desirable, e.g. because of their
connections with rapid mixing of Markov chains (a topic
of major interest in TCS), and because in combinatorial
applications of probability, systems with sufficiently
weak LRE's can sometimes substitute for probability spaces
based on purely independent choices. (This again involves
the hard-core model, which arises in surprisingly diverse
mathematical contexts.)

Speaking very generally, the (main part of the) project aims
at understanding the degree of order or disorder in various
large random systems, for instance the extent to which the
global structure of a physical system can be predicted from
knowledge about interactions between neighboring particles.
In recent years, random systems similar to those used to model
physical reality have played increasingly important roles
in TCS and DM, partly because they can be helpful in analyzing
(algorithmically and/or theoretically) even non-random problems
in these areas; and there has been an increasing realization of
the degree to which the issues arising in these three disciplines
are related. One major theme of the present project is an interest
in applying ideas and methods across mathematical boundaries:
especially in using ideas from the investigator's core area (DM)
to attack problems in SM and TCS, but also in bringing an
increasing familiarity with techniques from the latter areas to
bear on several problems of longstanding interest in DM.